Global Statistical Models of the Galaxy

AST-9619516 Global Statistical Models of the Galaxy. Drs. Kochanek and Di Stefano, at Harvard University, will integrate a wide variety of observational data sets in order to derive a model for the structure of the Galaxy. They will use a combination of distance estimators, dynamical data, and microlensing data in a well-defined statistical analysis. The elements of the Galactic model to be determined include the distance scale to the Galactic Center, the rotation curve, the disk mass and shape, the properties of the bar, the halo structure, and orbital characteristics of Galactic satellites. The advantage of global models, as compared to modeling isolated pieces of data on the Galaxy, is that the constraint that all data must agree on a common mass distribution is an extraordinarily powerful constraint. Such models and realistic estimates of their uncertainties are the key to estimating the dark matter distribution of the Galaxy, limiting or determining the amount of non-axisymmetry, interpreting the results of gravitational microlensing surveys, and understanding the distribution of Galactic components. ===============================